Optoelectronics Computing Systems Center (ERC Administrative Directors Summer 2000 Working Meeting)

Funding is provided in FY 2000 to the University of Colorado at Boulder Optoelectronic Computing Systems Center for the support of a working meeting of ERC Administrative Directors in the summer of 2000 at the University of Colorado at Boulder.